NSFnet Orientation and Training Workshop for Minority Institutions-June 21-23, 1989.

The Southeastern Universities Research Association, Inc. (SURA) will render logistical services in coordinating for the Computer and Information Science and Engineering (CISE) Directorate of NSF an NSFnet Orientation and Training Workshop for Minority Institutions (NOT-MI). The workshop will be held at the Continuous Electronic Beam Accelerator Facility (CEBAF) in Newport News, Virginia. SURAnet is a regional network of 52 nodes in the Southeast United States which provides user services and connection to the NSFnet. They seek to extend the network and services to all research and teaching institutions in the Southeast, including historically black colleges. Most of the nations predominantly minority institutions are located in the SURAnet area. NOT-MI will begin on the evening of June 21, 1989 and terminate in the afternoon of June 23, 1989. Participation will be limited and include selected institutions receiving Foundation support under: 1) the Comprehensive Regional Centers for Minorities, 2) the Minority Research Centers of Excellence, and 3) the Institutional Infrastructure-Minority Institutions Program. Approximately 40 attendees are expected. NOT-MI will allow computer networking experts and users to present instructions on internet technology, major protocols, principles and applications with hands-on experiences to educators/researchers and technical specialist of minority institutions that can readily benefit from NSFnet connection.